RFI Mitigation Workshop

This proposal solicits funds for 10 early career US scientists and/or engineers to attend the Workshop on Radiofrequency Interference Mitigation 2010 (RFI2010), to be held 29-31 March, 2010 in Groningen, the Netherlands, near Westerbork Observatory. RFI2010 is the third in a series of international workshops, held every 3-4 years; they provide the only forum where scientists can exchange ideas and share results on this important topic.